Conceptualization Tools for Unit Load Warehouse Design Based on Autonomous Vehicle Technology

The research project is aimed at closing the gap between the relatively new
autonomous vehicle storage and retrieval system (AVS/RS) hardware and
control system technology, and the design conceptualization tools needed to
assess their impact on unit load storage and retrieval ULS/R operations.
The proposed research will advance the analytical foundations of AVS/RS
modeling through development of a new class of specialized queuing network
models and lead to creation and deployment of analytical conceptualization
tools comparable to those available for crane-based automated storage and
retrieval system (CBAS/RS's). The models developed through this research
will capture several unique features of AVS/R operations such as vehicle
and lift interfacing, storage and retrieval interference effects, selective
transaction dispatching, consolidated load buffering, and explicit linkage
of S/R operations with in-process material flows. The proposed research
will be conducted as a joint effort between Rensselaer Polytechnic
Institute and University of Louisville, with active participation of
industry. In terms of educational activities, this project will lead to
multiple doctoral theses and undergraduate student research opportunities
at the two participating universities. The project will lead to the
development of media-rich multimedia based educational modules that can be
used in universities and industry.

The conceptualization tools developed in this research will enable accurate
and efficient prediction of AVS/RS performance and direct comparisons of
CBAS/R and AVS/R technologies with respect to cost and performance. The
models will be deployed through decision support tools that integrate the
systems level problems of ULS/RS design with several operational level
decisions for these systems. The project will also lead to the development
of web based instructional modules summarizing the findings of this
project. Prototype versions of the conceptualizing tools will be
disseminated to universities and industry with the help of the Material
Handling Institute of America (MHIA).